Curriculum Innovation for Simulation and Design of Wireless Communications Systems

9527537 Rappaport This award will allow the Virginia Polytechnic Institute and State University and the University of Missouri-Rolla to develop and distribute a trilogy of electrical engineering courses at the senior/graduate level. These courses include hardware and software components, combined with a change in teaching emphasis, and they will be offered at both universities, as well as at the University of Canterbury, in Christchurch, New Zealand. This project includes plans for the faculty to develop teaching materials, software modules, educational videotapes, and to provide laboratory/hardware experiences for students that do not exist today. Using an advisory panel consisting of academic and industry experts from the communications field, the course trilogy will be reviewed and perfected during this curriculum development. Materials developed under this program will be made available to universities throughout the country, through widely available texts, software modules, experiment study guides, and world-wide web postings.